Fundamentals of Enzymatic Catalysis in Organic Solvents

Typically enzymatic reactions are carried out in aqueous media; however, this research proposes to elucidate mechanistic features of enzymatic catalysis in organic solvents. There are now more than one dozen enzymes that have been found to be catalytically active when suspended as solids in organic solvents. The work intends to examine novel properties exhibited byenzymes in non-aqueous environments such as enhanced stability, altered specificity, ability to catalyze new reactions, and the dependence of these phenomena on the solvent, the mode of enzyme preparation and the nature of the enzyme. This information will increase the understanding of enzymatic conversions in organic solvents and should ultimately result in the optimal design of appropriate biochemical reactors.